SHF: Small: Collaborative Research: Modular ACL2

Reliability is extremely important for some software and hardware
applications. One approach is to use a programming language with a
mechanized logic---a so-called theorem-prover---to prove theorems that
establish some critical behavioral characteristics. Among theorem-provers,
ACL2 has found use with several industrial suppliers of high assurance
software and hardware. ACL2 does not support component-oriented software
development, however, making it difficult to use with large and complex
projects.

This research project has three goals: to add a pragmatic module system to
ACL2; to equip it with a hygienic macro system; and to investigate a type
system that accommodates ACL2's programming idioms. The project team
employs a cyclic, three-step exploration method. The first step is to
adapt constructs from existing, similar languages to ACL2, especially a
logical meaning consistent with the theorem prover of ACL2. The second
step is to explore the pragmatics of the design with a wide range of
examples. The third step is to add implementations to a pedagogic,
interactive development environment for ACL2 and to evaluate their
usefulness in software engineering courses. The results of this last step
are used to re-start the cycle.

The work will contribute to the dissemination of theorem provers in
classrooms and industry. The research team expects to expose college
students to the use of theorem proving in the design and development of
complex systems with dozens, and possibly hundreds, of reliable
components. The team also hopes to improve the ability of industrial ACL2
programmers to tackle complex component-oriented systems.